Nonparametric Identification, Estimation, and Testing of Auction Models

Quang Vuong University of Southern California SBR-9631212 This research will attempt to develop a less restrictive theoretical and empirical approach to the analysis of auctions. The research consists of three parts: nonparametric identification in an auction model, estimation using multi-step nonparametric indirect procedures and testing game theoretic restrictions imposed by an auction model. The new approaches to be developed will be applied to the analysis of the following data: eggplant auctions in Marmande, timber auctions in Mazamet, ONF Timber auctions, CNES procurement auctions and U.S. outer continental shelf auctions. The output of this research may allow private and governmental groups to improve the design of future auctions.